Jet Physics of Supermassive Black Hole Accretion Systems

The effort supported here will analyze data from the MOJAVE (Monitoring Of Jets in AGN with Very Long Baseline Array Experiments) program, which consists of multi-epoch, submilliarcsecond-resolution full polarization images of a complete sample of the brightest known Active Galactic Nuclei (AGN)jets. The work will serve to enhance the scientific impact of the upcoming GLAST observatory mission, by providing key physical parameters for large numbers of bright gamma-ray AGN. The existing dataset will be augmented via several parallel programs, including centimeter-wave radio monitoring, X-ray spectra and imaging, and targeted optical and TeV monitoring campaigns.

The broader impacts of this work include making the data archive available to the astronomical community, and training of students.